3D seismic investigation of upper plate deformation above a region of Slow Slip along the Hikurangi subduction margin of New Zealand

Subduction zones are the locations where one tectonic plate is forced beneath another. A geologic fault marks the boundary between the two plates. Frictional processes mean that motion along this fault is imperfect and may result in strain build-up. A sudden release in this strain build up causes earthquakes. Subduction zones are the locations of the greatest magnitude earthquakes and may be accompanied by tsunamis, making them particularly destructive. However, recently scientists have discovered that strain may be released in a variety of ways and over a range of time scales. One example of this is slow earthquakes, which rupture over weeks or months instead of seconds. It is important to understand what may cause a margin to release strain in different ways in order to estimate the hazard potential of the margin. This study will focus on the conditions that produce slow earthquakes. The Hikurangi Margin in New Zealand was chosen because it has unusually shallow slow earthquakes, which can be imaged using geophysical instruments and by drilling. This project provides training for a female graduate student and a Native Hawaiian undergraduate student. The project will promote a broader understanding of how ancient Hawaiian chants and legends were influenced by geologic events (volcanic eruptions, earthquakes, tsunamis). The project fosters international collaboration and cooperation by strengthening ties with colleagues in New Zealand, Japan and the U.K.

This project will build upon the successful Community Project to investigate fault property controls on slow-slip events (SSEs) along megathrust of the Hikurangi subduction margin, New Zealand. The highly successful seismic acquisition cruise, carried out during early 2018, acquired a 3D volume of 14.7 x 60 km. The volume has undergone preliminary processing through 3D stack, post-stack time migration and depth conversion and is undergoing industry processing. Initial interpretation of the shallow trench slope basin that was drilled by IODP Expedition 372 was performed and now the commercially processed volume will be used to extend the interpretations in order to understand the potential role that subducting seamounts play in the generation of SSEs. The research will be concentrated on understanding the geologic history of Tuaheni Basin, a mid-slope basin that formed on top of thrust packages of trench strata that were originally accreted at the toe of the subduction zone. The investigators will (1) trace prominent horizons throughout the basin; (2) document offsets along faults that cut those horizons; and (3) tie the horizons to the IODP Site to determine their ages and lithologies. The timing and patterns of deformation will be inferred within the basin to investigate possible interactions with subducting seamounts. Collaboration with colleagues who are concentrating on the deeper parts of the subduction system will allow constraints to be placed on the effects of seamount subduction on SSE generation. This project will provide significant support for fundamental understanding of the frontal region of the Hikurangi accretionary prism, a region currently undergoing a period of slow slip in its shallow region.